Clusters and Fluids at High Pressure: Ultrafast Dynamics

9520839 Zewail Over the past three years, this research has been centered on the use of ultrafast laser spectroscopy to probe molecular dynamics. The new research will focus on three directions: (a) studies of real-time dynamics in large (nano) molecular clusters; (b) studies of the photophysical and photochemical dynamics of materials under high pressure, reaching up to 4000 atmospheres; and (c) the use of novel laser techniques to examine and control selective processes in inhomogeneous systems. The objectives are to resolve the primary picosecond and femtosecond dynamics under these novel conditions of controlled, size, density and distance, and to learn about forces governing the transition to the condensed phase limit. %%% This research is concerned with the investigation of the ultrafast dynamics in clusters and at high pressures. The goal is to use ultrafast laser techniques, with picosecond and femtosecond lasers, to resolve and study important features of the dynamics involved in the transition from the isolated molecule to the condensed-phase limit. Studies of microscopic large clusters and systems at high pressures offers unique opportunities to test, on a fundamental level, molecular interactions under controlled conditions of size, density, and distance. These studies will cover elementary and complex molecular systems. ***